A Novel Approach for Measuring Crack Bridging Fiber Stress Profile in a Hybrid Fiber Reinforced Ceramic Composites

The primary objective of the proposed research is to measure crack bridging fiber stress profile directly in a transparent fiber reinforced ceramic matrix composite (FRCMC) using a new technique of Debond Length Measurement (DLM) in conjunction with the optical fluorescence spectroscopy as a fingerprint for local state of stress. This objective is being accomplished by fabricating transparent and hybrid FRCMCs comprising of a glass matrix reinforced with reinforcing continuous SiC fibers and sensor sapphire fibers, performing in situ crack propagation studies using an optical microscopy, measuring crack bridging fiber stresses in situ using a new approach of DLM and fluorescence spectroscopy, and incorporating these results into analytical models to describe fracture resistance behavior of FRCMCs.